Mathematical Sciences: Mathematical, Numerical, and Experimental Analysis of Fluid Motions

This research program will involve theoretical, computational, and experimental studies of various problems in fluid mechanics. The problems have as a common theme consideration of viscous flows with free boundaries. Numerical predictions of free surface shapes will be compared with experimental measurements. Stability of free surface flows, and possible time-dependent flow states, will be examined. This work should lead to an improved understanding of travelling waves, the propogation of bores, the development of edge waves, and the movement of sand bars under the action of water waves.